U.S.-Poland Cooperative Research on Raw Materials Procurement in the Paleolithic of Northcentral Europe

The main objective of this U.S.-Poland cooperative research project between Anta Montet-White of the University of Kansas and Janusz Kozlowski of the Jaqielonnian University in Krakow is to complete a series of studies of the acquisition, distribution, and use of raw materials during the Middle phases of the Upper Paleolithic age. The geographic focus of the project is a limestone plateau in the foothills of the Carpathian mountains in southern Poland, one of the richest sources of good quality Paleolithic raw materials in Central Europe. Polish scholars have led the way in this field and have been among the first to demonstrate long-distance transport of raw materials in the Paleolithic. The project offers American researchers and students unique opportunities for field access to important archeological sites and testing models of early human settlement organization and economy. The ultimate goal of the project is to arrive at a better understanding of settlement patterns and territoriality that developed in north-central Europe in response to changing climatic conditions before and during the time marked by the last major advance of the glaciers. This project fullfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Poland to combine complelmentary talents, pool resources, and share research facilities in areas of strong mutual interest and competence.